Curve aggregation and classification

This research is devoted to aggregation of estimators in nonparametric
regression models. The motivation is twofold. One is the existence
of many different methods of estimation, leading to possibly competing
estimators. In this case one may want to combine the estimators, rather
than to select them. The second one arises in meta-analysis type problems,
in which one wishes to aggregate estimators obtained from different
samples. This research proposes a readily implementable method that addresses
these questions, using tools from the theories of empirical processes, minimax
adaptive estimation and optimization. The proposed procedure yields, via
an oracle inequality, minimax optimal aggregation bounds for the risk of the
estimators.

This proposal has immediate applications in seismology and clinical
psychology and, more widely, to any data set that is comprised of curves.
The methods proposed here are used to develop signature curves for events
of interest. Having a signature for a seismic wave allows quick
discrimination between earthquakes and waves produced by man induced
explosions. An EEG based signature for depression will improve accuracy in
diagnosing the disease and will permit nuanced classification of further
patients, according to the severity of the illness. The software that allows
these analyzes will be made freely available on the world wide web, along
with a step by step description that will facilitate its use by researchers
from other disciplines.